BBSRC-NSF/BIO: Engineering novel protein-based synthetic cells using carboxysome building blocks

Synthetic cells are engineered systems that mimic key features of living cells. They represent a promising frontier in biotechnology. Most synthetic cells developed to date rely on lipids or polymers as structural materials. This project seeks to establish a fundamentally new approach by building synthetic cells entirely from proteins. The research focuses on naturally occurring protein-based compartments found in bacteria. By harnessing the self-assembling properties of these proteins, this project will develop programmable, cell-sized protein structures that emulate important features of living cells. The properties of these synthetic cells include compartmentalization, selective permeability, and organization of biochemical reactions. The project addresses fundamental questions about how complex biological structures self-organize. The studies planned in the project would advance the emerging field of Engineering Biology. Outcomes are expected to provide new tools and design principles for synthetic biology, biomanufacturing, agricultural biotechnology and energy applications. The project will advance NSF priorities in Biotechnology and Advanced Manufacturing. The development of advanced protein-based biomaterials is also expected to be impacted by the outcome of this research. The project will support undergraduate, graduate, and postdoctoral training. The public will also be engaged through educational programs and exhibits focused on biomanufacturing and synthetic biology.

This international collaboration between researchers in the United States and United Kingdom will investigate how carboxysome proteins can be assembled into novel protein-based synthetic cells using bottom-up and cell-free engineering approaches. The project has four integrated objectives: (1) generate phase-separated carboxysome cargo condensates containing carbon-fixing enzymes and associated scaffolding proteins; (2) determine how carboxysome shell proteins self-assemble into cell-sized compartments and identify the molecular and environmental factors governing their architecture; (3) integrate cargo condensates and shell structures to construct functional protein-based protocells with tunable properties; and (4) develop advanced microfluidic platforms and real-time imaging methods to visualize and control assembly processes at molecular, nanoscale, and microscale resolutions. The research combines protein engineering, synthetic biology, microfluidics, fluorescence microscopy, electron microscopy, and quantitative biophysical analysis to establish mechanistic principles governing biological self-assembly and compartmentalization. The resulting experimental and analytical framework will provide new understanding of bacterial microcompartment biogenesis and enable the rational design of programmable protein-based cellular systems. In addition, the project will generate datasets and design principles that can support future artificial intelligence and machine learning approaches for the computational design of self-assembling protein architectures and functional biomaterials.

This project is supported as part of a UKRI/BBSRC- NSF/BIO Lead Agency Opportunity where NSF supports the work of the US investigator and the BBSRC supports the work of the UK investigator.